A Quantum Field Theory Approach to the Study of Low-dimensional Topology Invaraints and their Categorification

The Jones polynomial invariant of links presents two puzzles. The first
one is its interpretation within the framework of classical topology and
its relation to the fundamental group of the link complement. This
relation is well-known for the Alexander polynomial, but its Jones
analog is missing. I search for it by using the quantum field theory
approach. I decompose the colored Jones polynomial in the semi-classical
limit into a sum of many simpler invariants, which turn out to be
multi-variable polynomial invariants of links. These invariants are
arranged naturally into a `tower' and the Alexander polynomial lies at
its foundation. My goal is to study the properties of the other `higher
level' polynomials and establish their relation to the topology of the
knot complement. The second puzzle of the Jones polynomial is its
polynomial structure, which does not follow easily from its
Chern-Simons-Witten path integral presentation. An amazing explanation
for the polynomial nature of the Jones polynomial comes from Khovanov's
categorification program, which interprets the Jones polynomial as a
graded Euler characteristic of a chain complex of graded modules,
associated to a link up to a homotopy. I will study the possible quantum
field theory interpretations of the Khovanov homology. Namely, the
homology of the categorification complex should be a space of states for
a 4-dimensional topological quantum field theory, which has to be
constructed. This construction should help us to extend Khovanov's
results to quantum polynomial invariants of 3-manifolds and to interpret
their relation to 4-dimensional topology.

The problem of knot classification is very old and although its
formulation is simple and transparent, it has not been solved yet
despite concerted efforts of many mathematicians. One of the most
successful approaches to knot classification is the construction of knot
invariants, that is, the numbers, which can be easily computed by
looking at a picture of a knot and which would be the same for all
pictures representing the same knot. This area has undergone significant
developments in the last 30 years starting with the invention of the
Jones polynomial. This polynomial and the other invariants which
followed it, are intimately related to quantum field theory and can be
expressed as so-called path integrals. Thus many of the new ideas in the
theory of knot invariants are inspired by methods and approaches of
quantum physics. The goal of my research is to use the methods of
quantum field theory in order to interpret the new `quantum' topological
invariants within the framework of classical topology and to apply them
to the solution of the knot classification problem.